RUI: High precision calculations on the beryllium and lithium atoms

Hylleraas techniques are extended to treat the low lying excited states of atomic Li and the ground state of the four-electron Be atom.